Dissertation Research: Occupational History of an Early Ceramic Age Settlement on the North Coast of Puerto Rico

Dr. Dekin and graduate student Peter Siegel will obtain dates on a series of archaeological materials from the site of Maisable which is located on the north coast of Puerto Rico. Through careful excavation, Mr. Siegel has exposed portions of an early village and delineated both houses and associated mounds. He has also uncovered a number of human skeletons. Based on associated artifacts and several radiocarbon dates, it appears that two consecutive occupations, possibly by different cultural groups, took place at Maisable but the evidence is not conclusive. Mr. Siegel will submit both bone samples and carbonized wood to the University of Arizona for radiocarbon dating. A series of potsherds will be sent to the University of Durham for thermolumenescent dating. The results should allow more secure chronological placement of the different phases of occupation. Archaeologists have proposed several models for the population of Caribbean islands such as Puerto Rico. The "wave theory" postulates successive series of immigrants who move across the island chain. Cultural changes observed in the archaeological record are attributed to the influx of new immigrants. Other prehistorians envision greater population continuity and argue that much change occurs through in situ development with no population replacement. Unfortunately, the data are not available to evaluate these contrasting hypotheses. Careful dating of Maisable should contribute to an answer. This research is important for several reasons. Relatively little archaeological research has been conducted in Puerto Rico and Maisable will help to rectify this situation. Secondly, this project should increase our understanding of how cultures change, and how this change can be discerned in the archaeological record. Finally, since the results will be used by Mr. Siegel in his doctoral research, they will assist in the professional development of a promising young scientist.